SBIR Phase I: Oxide dispersion strengthened titanium aluminide

This Phase I Small Business Innovation Research (SBIR) project will develop a low-cost manufacturing process for nanoengineered, oxide-dispersion strengthened titanium aluminide powders with superior isotropic high temperature properties, to replace cost-intensive mechanical alloying process. The program will also develop a manufacturing route for readily available thermal spray powders for titanium aluminide coating.

Successful completion of this phase I program will result in the availability of high temperture resistant oxide dispersion-strengthened gamma titanium aluminide for applications in aerospace, automotive, nuclear, fusion and other power generation system construction applications. Additional applications include turbine engines, industrial heat treating furnace structures, and glass making equipment. The new fabrication route should enable more precise control over material properties and improved performance.